CAREER: A Framework for Preventing Web-based Attacks

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The World Wide Web is a critical infrastructure that serves our society
by facilitating information exchange, business and
education. As it continues to evolve, the number of web-based
attacks that target innocent web users keeps increasing.
Examples of such attacks include Cross-site Scripting, SQL Injection
and Cross-site Request Forgery. Recent attacks on end-users and
online enterprises through these virulent attacks have resulted in
widespread damage. Defending these attacks is therefore of very
important concern to Internet economy and to society-at-large.
This project develops a comprehensive plan for defending web
applications from these attacks.

The technical contributions of this project are in the development of the
technologies that elicit the intended behavior of a web application
and prevent attacks by enforcing these intended behaviors. We build
a framework in which the intentions of a web application are represented
using models, which are then enforced to ensure robust prevention of attacks.
This framework uses novel techniques based on static and dynamic
analysis, symbolic evaluation, runtime checking and
isolated execution as foundations. This project also develops
techniques that enable a web application and a browser to
collaborate in order to prevent attacks, and apply fine-grained
restrictions on Web content. The tools being developed in this project
will have immediate impact on defending legacy web applications
that are vulnerable to these attacks.

The CAREER research project is closely tied with educational
efforts by integrating topics on web security in the undergraduate
and graduate computer security classrooms. Finally, a collaborative
effort with a Chicago inner-city elementary school is also part of this
project's educational mission.